Deformation-Induced Melt Migration and Related Attenuation in Texturally-Equilibrated Silicate Partial Melts

This work is an experimental investigation of deformation- induced melt migration and related elastic attenuation in silicate partial melts. Two-phase solid-liquid aggregates (having first attained appropriate textural equilibrium) will be subjected to a four-point flexure state of stress; the thermodynamics of solid- liquid interfaces suggests that, in this case, the melt phase should flow from that side of the specimen under a compressive principal stress to the specimen side under a tensile principal stress. This melt migration is revealed as a anelastic, fully- recoverable strain for the two-phase specimen (which is particularly well "imaged" in the flexure mode). The role of this deformation-induced melt transport in elastic attenuation will be examined using reciprocating flexure; the attenuation behavior will be determined by the hysteresis in stress-strain curves.